RUI: Oceanographic Instrumentation

This Oceanographic Instrumentation acquisition project is provided under the NSF Research for Undergraduate Institutions (RUI) guidelines. The Maine Maritime Academy, on behalf of a consortium of Maine research and educational institutions, was awarded a Charter Party Agreement in 1988 to operate the NSF-owned research vessel ARGO MAINE (formerly R/V CAYUSE). The Academy will acquire a shore-based sideband communications radio and will upgrade and make operational a CTD / Rosette system that has been donated to the Academy by a private company. The CTD collects information on seawater conductivity and temperature as it is lowered through the water column. The Rosette system collects discrete water samples from specific depths for later analysis. Both are very basic pieces of seagoing equipment and are widely used by oceanographic institutions. The requested upgrades will bring the systems up to modern scientific specifications. The equipment will be used on the ship for the Academy's educational programs and for research projects of Consortium members and visiting investigators.